Real-Time Walkthroughs of Serious Synthetic Environments

The goal - so far not entirely realized - of synthetic environments is to
provide a realistic experience for their users. In particular, these
environments can be used for active collaboration on engineering designs
and medical applications. This project attacks some of the most important
outstanding problems in the field of real-time synthetic environments:

1) Develop a scalable system to achieve real-time walkthrough of very large
CAD models with high-accuracy rendering of spatial arrangements.

2) Develop parallel rendering algorithms that take into account emerging
graphics architectures with multiple graphics pipelines and general-purpose
processors.

3) Develop incremental algorithms to allow interactive updates to large
dynamic environments, allowing objects to be moved, added, and removed in
realistic manners.

Among the algorithms that the project will explore are visibility culling,
multi-resolution methods, model simplification, image-based rendering,3-D
image warping, multi-pass rendering, and efficient updates for model
hierarchies, occlusion databases, and level-of-detail generation. These
advances will be tested on real-world models, including a 13
million-element polygonal model of an electric generating station.